MRI: Acquisition of Computing and Peripheral Hardware to Support Collaborative Research and Research Education in Imaging and Information Visualization

EIA-0215356
Ikhlas Abdel-Qader
Bradley Bazuin
Karlis Kaugars
Abhay Sharma
Li Yang
Western Michigan University

MRI/RUI Acquisition of Computing and Peripheral Hardware to Support Collaborative Research and Research Education in Imaging and Information Visualization

This proposal from a RUI institution, developing an Ethernet-Based imaging and visualization infrastructure, supports interdisciplinary research projects that span a variety of application areas such as Information Visualization, Imaging Science, Color Analysis, Time-Varying Images, and Real-Time Image Processing. The laboratory, consisting of one server, multiple workstations, associated cameras, frame grabbers, output devices, and selected network and image processing software, will be bridged to existing departmental, college, and campus networks, and will be used to accomplish the following goals:
Expand research investigations advancing image processing and information visualization,
Encourage interdisciplinary research, research training, and educational activities,
Increase industrial collaboration adding a real world problem environment,
Support graduate and undergraduate instruction in related courses such as Pattern Recognition, Computer Graphics, and Digital Imaging, and
Attract women and minority groups at both graduate and undergraduate levels to pursue research projects.
The infrastructure will service the following projects within three research groups:
1. Information Visualization and Data Mining Group
A. Visual Exploration and Mining of Large Relational Datasets
B. Algorithm Visualization
C. Interactive Document Management
D. Visualization of Association Rules
2. Image Visualization, Color Measurement, and Color Analysis Group
A. Color Reproduction in Digital Imaging
B. Fundamental Analysis of CCD Imaging Systems Using Fourier Theory
3. Real-Time Image Processing and Pattern Recognition Group
A. Utilizing Wavelets for Target Tracking
B. An Integrated Image Analysis Algorithm from Dynamic Scenes
C. Confocal Microscopy and Image Analysis in Gamma-Ray Astronomy
D. Wireless Vision for Intelligent Transportation System
E. Pavement Surface Image Analysis System